Research in High Resolution Ultrasound Mammography

The objective of this project is to improve the lateral resolution of ultrasonic echo scanners for use in mammography. Presently, the resolution is limited to a few mm due to diffraction-induced wavefront distortions. To improve the resolution of very large transducers it should be possible to compensate for the distortions by using adaptive weight control techniques. With these techniques a ten-fold improvement in the present resolution of commercial systems should be able to be achieved. This project will first investigate the 1 D transmission problem followed by 2D transmission and 2D reflection studies. Ultrasound is a relatively low-cost imaging modality, however, improvements in the lateral resolution are needed before this modality can be used more widely in the medical field.